Support for Undergraduate Scholars in Mathematics and Computer Science

This program attracts and retains financially needy mathematics and computer science students, with particular attention focused on those students in underrepresented groups; establishes connections with businesses that recruit and employ Truman's math and computer science graduates through a variety of activities including on-site visits to the businesses; provides a supportive atmosphere, including assisting in the formation of learning communities among CSEMS scholars, mentoring, and personal tutoring; and helps participants to develop an interest and appreciation for mathematics and computer science by introducing them to experts and outstanding speakers in the field. Faculty coordinate and oversee all activities relating to the program.